Mass Spectrometry Across the Chemistry and Biochemistry Curriculum

Chemistry (12) This project aims to introduce mass spectrometry (MS) into all levels of the undergraduate chemistry and biochemistry curriculum at Arizona State University. A major objective of the project is to use MS as a means for developing "molecular thinking" in students. Acquisition of Gas Chromatography/Mass Spectrometry (GC/MS) and Matrix-Assisted Laser Desorption Ionization - Time of Flight (MALDI-TOF) mass spectrometers are enabling students to perform experiments using mass spectrometry in course-related laboratory work and independent student research. A number of experiments, with increasing complexity, are being adapted from the current scientific literature for instructional purposes at various levels of the curriculum including general chemistry, organic chemistry, instrumental analysis and biochemistry. Assessment of the outcomes of the project is being accomplished through a variety of methods including ongoing evaluation of students, TAs and faculty, as well as exit interviews and tests designed to measure how well the methods help students learn key mass spectrometry and chemistry concepts.